Network for Neutrinos, NuclearAstrophysics, and Symmetries: 9/26-8/27

A revolution in astrophysics is underway, driven by new instruments that view the universe’s most extraordinary events through multiple astrophysical messengers. Merging neutron stars have been observed through their gravitational waves and through the electromagnetic radiation emitted by the hot debris they eject. Collapsing stars within the Milky Way produce prodigious fluxes of neutrinos that are observed in massive underground detectors, while also brightening the night sky in dramatic supernova. These explosions generate extreme conditions – energies, sustained temperatures, matter densities – beyond any realized on earth. The Network for Neutrinos, Nuclear Astrophysics and Symmetries Physics Frontier Center (N3AS-PFC) is a collaboration of theorists who utilize these observations to answer some of the most important open questions in physics: how were the heavy elements created, what is the form of the super-dense nuclear matter found at the center of a neutron star, and how can we test the properties of neutrinos and dark matter using astrophysical laboratories? The answers have the potential to influence the future directions of nuclear, particle, and astrophysics. The new generation of postdoctoral researchers and students that N3AS-PFC is training are also crucial to that future.

The N3AS-PFC will explore the physics in extreme astrophysical environments by combining knowledge of the underlying nuclear and neutrino microphysics, with the most advanced tools for numerical simulations in astrophysics. This includes the use of advanced computing platforms to produce high fidelity simulations of supernovae and mergers; the development of machine learning techniques to optimize nuclear mass and decay rate predictions important to nucleosynthesis; and the application of quantum information techniques to the highly nonlinear problem of entangled flavor-mixed neutrinos trapped at the center of an astrophysical explosion. The work will proceed on a number of scientific fronts. N3AS-PFC will develop the theory of kilonovae – the optical counterpart of a neutron star merger – to determine whether this environment can sustain the necessary chain of nucleosynthesis. N3AS-PFC will develop theoretical tools for describing nuclear matter at several times nuclear density, thereby relating fundamental nuclear physics to properties of neutron stars, including their masses, radii, deformability, and long-term cooling. N3AS-PFC will seek to better understand the physics of neutrino flavor mixing at high density, including how the mixing impacts explosion dynamics . Because phenomena like neutron stars, supernovae, and the Big Bang fire the imagination of students, N3AS-PFC has been very effective in student training. Its programs BURN and INTURN currently support 35 advanced undergraduate researchers, pairing each with a postdoctoral or faculty mentor. It also supports ULAB, an introduction-to-research program designed and run by senior undergraduates for beginning undergraduates. Last year 100 students participated in ULAB. N3AS-PFC provides its postdoctoral Fellows with broad training opportunities and the support of multiple mentors, preparing them to become future leaders in multi-messenger astrophysics. By supporting such research and educational programs, this N3AS-PFC award directly addresses the goals of NSF’s “Windows on the Universe: The Era of Multi-Messenger Astrophysics” Big Idea.